Japan JSPS Program: Time Variance in the Decay of Neutral Kaons

9418768 Chapman This award supports a 12-month Japan Society for the Promotion of Science Postdoctoral Fellowship for Dr. Michael Chapman, Department of Physics and Astronomy, University of New Mexico, at the KEK National Laboratory for High Energy Physics, Tsukuba, Japan. Dr. Chapman will work with Dr. Yoshitaka Kuno and Jun Imazato of the Department of Physics, on a research project entitled, "Japan JSPS Program: Time Variance in the Decay of Neutral Kaons." The research team will study the time reversal operation of the CPT theorem of symmetry operations. In this general theorem C is the charge conjugation operation, P is the parity operation, and T is the time reversal operation. Previous studies have shown that C and P change in the weak decays of neutral Kaons, however, to date no experiments have observed time variances. Drs. Kuno and Imazato are experts in proton synchrotron experimentation and Dr. Chapman will work with them to search for a T violating signal of decaying Kaons. ***